RUI: Studies of Surfactant-Surfactant and Surfactant-Alcohol Mixtures

9727708 Fisch The overall goal of this research is to obtain a better understanding of the physical and chemical properties of several unique self-assembled systems in the dilute, semidilute, and concentrated solution regime. Mixtures of both anionic and cationic surfactants will be studied as a function of temperature, solvent salinity, and relative concentration of the two surfactants. Surfactant-alcohol mixtures will also be studied to understand the effects of structural isomers on the physico-chemical properties. These research goals will be achieved by application of a wide variety of optical and physical chemical techniques such as light scattering, viscosity and surface tension techniques to colloidal and micellar systems. %%% Surfactants and mixtures of surfactants are used extensively in industrial processing, biological and pharmaceutical preparations, and drug delivery systems. Students studying the physics and chemistry of self-organization in these systems, and the manipulation of their properties, will acquire skills and knowledge in an area of considerable technological importance. ***